International Travel Funds for Foreign Participants to Attend the Summer, 1991, Gordon Research Conference on Chemical Oceanography

Chemical Oceanography is increasingly becoming a global science. In order to foster communication and interaction with scientists throughout the globe, this action provides support for travel of fifteen foreign scientists to the 1991 Gordon Research Conference. Over the years the Gordon Research Conference in Chemical Oceanography has become one of the major forums for discussion and the exchange of ideas and information in the field of marine chemistry. Approximately 100 scientists from all over the United States attend this meeting. In addition, in recent years, students nearing completion of their graduate work have also been invited. This year the theme of the conference will be "Chemistry at Oceanic Interfaces - An Interdisciplinary Approach."